Research Experiences for Undergraduates 'Outreach'

Supplemental funding is provided to Duke University, Center for Emerging Cardiovascular Technologies for the support of eight undergraduate students from institutions other than Duke University to participate in research projects within the Center during the summer of 2000.